The Representation and Computation of Uncertainty

Formal representation of uncertainty is needed for taking account of partial knowledge, for dealing with uncertain data, for making decisions in uncertain circumstances. Probability theory provides the classical way of representing uncertainty, but numerous other representations have been proposed. These representations have a lot in common. This work will survey these proposals, with a view to exploring their relations. One approach which may serve to provide a general framework is the set-of-classical-distributions approach. Many representations of uncertainty can be construed as sets of distributions subject to a certain class of constraints. For example, Shafer's support functions can be seen as the infima of sets of distributions subject to the constraints of convexity and a special additivity constraint. This mechanism will be used to explore the relations among the various views. Finally, supposing that the constraints on the set of distributions come from general statistical knowledge in a database, this project will explore the problem of the feasible computation of uncertainties relative to such a database.